Background Cancellation of Noise and Harmonic Distortion in Analog-to-Digital Converters

Objective:
The design of highly accurate analog circuits becomes increasingly difficult in deep submicron technology. In particular, errors due to high-order nonlinearities are the limiting factors in achieving high resolution analog-to-digital convertors (ADCs). Conventional methods of estimating nonlinear terms needs higher order statistics of the output signal and involve complicated signalprocessing techniques that can overshadow the benefits of digital calibration. The objective of this research is to use innovative digital calibration techniques for compensation of noise and harmonics with minimal overhead in the analog design. The research includes design, fabrication and proof-of-concept of the novel calibration techniques incorporated in a Nyquist-rate ADC.

Intellectual merit:
This research will lead to breakthroughs in the design of analog circuits in deep submicron technologies where traditional circuit design techniques are unable to achieve the required performance. The proposed techniques will also result in significant reduction in power consumption and increased efficiency. Although the calibration techniques will be demonstrated in a Nyquist-rate ADC, they are generic in nature and can be used in any analog block with minimal modifications.

Broader Impact:
This research has promising applications in multi-standard wireless systems and bio-implantable systems used for diagnosis and prognosis purposes. The outcome of this research will be used in a new graduate course focusing on application of advanced digital-signal processing techniques in enhancing performance of analog circuits. The interdisciplinary nature of the project which combines the knowledge of analog circuit design, digital VLSI design and digital signal processing will provide excellent opportunities for several senior design projects for undergraduate students.